Empathy: Conceptualization, Socialization and Correlates

Many mental health professionals and social scientists have claimed that empathy plays an important role in social and moral life--that the individual who feels another's distress or feels sympathy for a distressed or needy other will be more likely to assist the distressed person and less likely to harm him/her. At the present time, however, the empirical research is not entirely supportive of these assumptions. This failure may be due in part to the use of some indices of empathy that have questionable validity. Moreover, very little is known about how individuals develop a predisposition to respond sympathetically. Thus, the purposes of the present research are to use multiple methods to assess and differentiate various modes of affective responding that relate to empathy and sympathy and to examine the socialization antecedants of empathic responding. The investigators will examine age- related changes in the expression of empathy/sympathy and how the various indices of empathy relate to prosocial behavior. Specifically, in studies with people aged 4-5 years to adulthood, three types of measures of emotional responding will be used: self-report measures (e.g., verbal or written responses to specific questions), changes in facial expressions, and changes in physiological responsiveness (i.e., changes in heart rate and skin conductance). Facial and physiological indices are included because they may be less influenced than self report indices by individuals' conscious desire to present themselves in a positive light, and because young children may have difficulty reporting their emotional reactions. Moreover, these measures will be used in settings that are more naturalistic than those laboratory settings used in past research. Finally, the investigators will examine parental socialization practices with regard to emotionality (i.e., how parents deal with emotions in the home, how they talk about emotions, and how they handle their children's expression of emotions) and the relation of these practices to children's emotional responsiveness. Thus, this research program has important practical as well as important scientific value. The research may help us identify important parenting practices that are related to the development of prosocial behaviors in children. Moreover, the use of multiple measures in the research allows us to explore a variety of methods that can be used to distinguish among various types of empathic responding and how these are theoretically and empirically related to the development of positive modes of behavior.